CRO -- Season Two

Proposal No. ESIE 94-50223 Proposal Name: CRO - SEASON TWO PI: Franklin Getchell Total NSF Award: $2,747,308 Anticipated Completion Date: Fall, 1994 Abstract Children's Television Workshop is producing the second season of "CRO," an animated television series designed to bring informal science education to Saturday morning commercial television's large, demographically diverse audience of children. Each of eight new programs to be broadcast on ABC has the goals of: 1) entertaining six- to eleven-year-old viewers while increasing their familiarity with and interest in basic science and technology principles, 2) stimulating viewers' interest in science and technology by showing that they are not abstractions, but integral parts of daily life, and 3) convincing youth that discovering the workings of science and technology can be fun. In addition to the television series, CTW will develop and distribute a range of supporting materials. These include a twelve-page activity book; a four-color, four-page user's guide for informal science education leaders; two four- color, sixteen-page comic books that include puzzles, brain teasers, and simple experiments; an eight-panel activity poster; and inclusion of "CRO" material in 3-2-1 Contact magazine. Part of the distribution of these materials will be through CTW's partnerships with youth-serving organizations such as YMCA's , 4-H Youth Development Education, and Boys and Girls Clubs. The series also will be released on home video and CTW is considering development of an interactive product based on the series. Key staffing for season two will include Franklin Getchell who will continue from season one as co-principal investigator and Joel Schneider, who will replace Ed Atkins as the other co-principal investigator. Schneider will be responsible for content development of both the television series and of the ancillary materials. Jeffrey Nelson, formerly Executive Producer o f Square One TV, will join "CRO" as Executive Producer. ***